CSR: Small: Rethinking the OS/Network Boundary

Operating systems and networks developed largely independently, due to
the nature of their development -- operating systems were developed by
groups within organizations/companies, while networking requiring
interoperability was developed across organizations. As a result of
this development history, the boundary between the networking
subsystem and the rest of the operating system has remained largely
opaque, with little information regarding the performance or progress
of transfers being communicated to applications. This research
addresses this limitation by exploring a richer boundary interface
that allows programs to see the ongoing behavior of network transfers
and to control their operation at a fine granularity. These interfaces
would augment, rather than replace, the existing interfaces, so the
portions of programs that are satisfied with the current interfaces
could continue unmodified, and developers could change only the
portions that can benefit from richer information. This research is
largely experimental in nature, and will combine the design and
implementation of new interface abstractions along with the
development of new or modified programs to take advantage of these
interfaces. In addition to the design work associated with the
interfaces, additional criteria for success include examining the
performance and delay behavior of modified applications, and the
effort needed to modify such applications. The expected results from
this work include applications that can more precisely control their
networking behavior, reducing memory and processor usage, improving
energy efficiency, and improving delay behavior. High-performance or
time-sensitive applications, such as networked video, should benefit
from this research.